CAREER: An Organizational Learning Approach to Software Development

The research portion of this CAREER project seeks to develop a conceptual framework and prototypes for an organizational learning approach to software development. The project addresses the codification of knowledge as it emerges in development organizations. The goal is a form that can be used as the basis for the continual improvement of software products and the development process. A domain lifecycle methodology is being developed that shifts the focus from individual projects to recurring design problems and solutions developed by an organization. The research is based on empirical observations of a large software development organization. Project goals include: (1) Creation of reuse-based software development methodologies incorporating organizational learning tools; (2) Development of domain knowledge from individual cases to design guidelines to formal reasoning systems supporting domain-oriented design; (3) Development of prototype systems using case-based technology to support organizational learning; (4) Provision of a body of empirical results based on studies of real world development projects and evaluations of prototypes supporting organizational learning. The educational goals of this project are to: (1) develop active learning techniques for teaching software design concepts; (2) stimulate lifelong learning through organizational learning techniques. While organizational learning is integrated with the research portion of this project, active learning techniques are explored through the development of a multimedia design studio for teaching software design concepts.